Experimental Design for Electronmagnetic Surveys of Mid-Ocean Ridges

Seafloor topography has a major effect on magnetotelluric sounding and magnetovariational profiling. This project will conduct an experimental design program using a variety of two and three dimensional modeling methods to quantify the effects of bathymetry and three.dimensional seafloor sturcture on natural source.field soundings.